Development of Particle Tracking Flow Visualization for Opaque Metallic Melts

Abstract
CTS-9988603
J. N. Koster, University of Colorado

It is proposed to expand an experimental facility dedicated to liquid metal fluid mechanics and solidification research: its existing density (i.e. phase) field visualization capability will be supplemented by a new particle tracking velocimetry technique: in this manner, the two-phase convective processes which characterize the transition from liquid melts to solid alloy casts, will be quantitatively measurable in a number of cases. This new experimental facility will then be available for validation to the theoreticians who have accumulated a large number of numerical simulations, but so far without the availability of such a reality check. The PI is contemplating his own set of comparisons: single element melts (Gallium) with and without solidification, Gallium-Indium and Aluminum alloys with solidification. More broadly, the PI envisions a multi-University activity which would answer the need of the liquid metal basic research community in the US and abroad. The PI gave an extensive evaluation of the specific challenges associated with the new technique, especially in regard to the choice of tracer particulates.